SBIR Phase II: Advanced Metal Film Polishing Planarization Process Control

Endpoint Technologies Inc. will develop an advanced process control monitoring technique for layer-to-layer breakthrough applications of the Chemical Mechanical Polishing process technique. The approach is based upon the integration of back-and front-side sensors connected via a sensor fusion process controller which controls up to 10 sensors. Process controller algorithms will be developed to achieve high accuracy and process reliability improvements of significance in the semiconductor manufacturing industry.